Differences Between Interindividual and Intergroup Interactions

Since the time of Plato, it has been observed that joining groups leads individuals to think and act more poorly, often in destructive ways. By the 20th century, such prominent social scientists as LeBon (1893), McDougall (1920), and Freud (1922) debated the causes of why decent persons behave badly when banded together. During the past two decades, research has increasingly focused on between group interactions. It has shown that interacting groups consistently act in more competitive ways than do interacting individuals, even when cooperation would be more productive. This phenomenon has been shown even in the most minimal social situations, when temporary groups have been formed for dealing with inconsequential matters. The present research will test whether the primary reason that interacting groups behave destructively toward one another is that the presence of an "outgroup" raises negative expectations about exploitation and thus produces lack of trust. To explore these questions, experiments will systematically lower threat and reasons for mistrust; for example, alternatives that assure non- exploitation and the maintenance of own-group power will be explored. It is expected that such manipulations will decrease the frequency of destructive behavior. If this occurs, the research has important implications for understanding cross-group hostility and rejection of outgroups, both within and between cultures.